Connections to the Internet

The California College of Podiatric Medicine requests support from NSF to connect it's campus to the Internet. The College, located in the San Francisco with approximately 400 students, is one of seven podiatric medical schools in the nation. The college intends to connect through AimNet a local Internet service provider. The campus needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.